Student Travel Grants for the 13th High Performance Computer Architecture Conference

HPCA is one of the top-tier conferences in the field of Computer Architecture. This year's
program has twenty-eight technical papers selected from 174 submissions (an acceptance rate of
16%). The conference addresses a broad spectrum of foundational concerns for computer
architecture and computer design including microarchitecture, cache and memory system design,
parallel computer architectures, power-efficient architectures, embedded and reconfigurable
architectures, I/O systems, and performance evaluation.
This year's conference is also the host to eight workshops and three tutorials. Detailed
descriptions of the workshops, tutorials and the full technical program are available on the
conference web site, http://www.hpcaconf.org. The conference is sponsored by the IEEE
Computer Society's Technical Committee on Computer Architecture and is held annually. The
lead organizers for the 2007 conference include Professor Ahmed Louri of The University of
Arizona (general chair) and Mazin Yousif of Intel Corporation (co-general chair), and Professor
Trevor Mudge of The University of Michigan (program chair).